Topics in Differential Geometry

Abstract

Award: DMS 0604759
Principal Investigator: Jon Wolfson

The project will investigate the question of the existence minimal lagrangian
submanifolds in Kaehler-Einstein manifolds and special lagrangian submanifolds
in Calabi-Yau manifolds using variational and deformation techniques and using
mean curvature flow. The ``Lagrangian Hodge Conjecture'' states that given an
integral lagrangian homology class in a Calabi-Yau manifold there is a special
lagrangian cycle that represents this class. This conjecture is now known to
be false in a Calabi-Yau surface (a K3 surface). The failure of the conjecture
is closely related to the existence of singularities (other than branch
points) on minimizing lagrangians. This project aims to answer a related
conjecture, the ``Deformation Lagrangian Hodge Conjecture'': Given a
one-parameter family of Calabi-Yau metrics whose associated Kaehler forms have
fixed cohomology class and given a lagrangian homology class, suppose that the
initial metric in the family admits a special lagrangian cycle that represents
the lagrangian homology class. Then, we conjecture, that the metrics in the
one-parameter family sufficient close to the initial metric also admit special
lagrangian cycles that represents this class. This conjecture has been
established in the two dimension case (the case of special lagrangian surfaces
in K3 surfaces) and in the case that the initial special lagrangian is an
immersion. It is known that the mean curvature flow of a smooth lagrangian
submanifold preserves the lagrangian condition if the ambient manifold is
Kaehler-Einstein. The project intends to investigate various questions about
the behavior of lagrangians under this flow, in particular, to study examples
that can be used either to give counter-examples to the Thomas-Yau conjecture
or show that any such counter-example must be global.

Variational problems with geometric constraints, deformation problems and mean
curvature flow in codimension greater than one are on the frontier of
mathematical analysis. These problems are natural in geometry but they are
also important in many different applied problems. For example, in material
science a model problem asks to find a minimizer of ``kinetic energy'' among
area preserving maps between disks and to find the optimal smoothness of the
minimizer. Parts of this project are closely related to this kind of
existence and regularity question and therefore to developing techniques at
the foundations of the theory of non-linear elasticity. In string theory, a
branch of theoretical physics, well known work conjectures the existence of a
certain class of volume minimizing three dimensional surfaces called special
lagrangian submanifolds. This project is a direct attempt to resolve this
conjecture. Mean curvature flow in various codimensions models many different
physical phenomena, including, for example, flame propagation. This project
attempts to exploit the ``lagrangian'' constraint to get an understanding of
mean curvature flow in higher codimensions. The techniques investigated in
this project hold the promise of enhancing the interaction between geometry
and various fields of applied mathematics and engineering and in bringing new
results and techniques into these fields.